U.S. Army Corps of Engineers (USACE) Support of the National Center for Atmospheric Research

This effort supports the National Center for Atmospheric Research (NCAR) that involves the United States Army Corps of Engineers (USACE). The USACE will provide resources to NCAR to conduct collaborative activities shared by both parties.